Shipboard Technical Support

0075991
Knox
This award to University of California San Diego provides shipboard technical support, shore-based support, as well as maintenance and calibration of shared-use scientific instrumentation, for researchers using four oceanographic research vessels, all operated by the University's Scripps Institution of Oceanography. The four vessels operate as part of the University-National Oceanographic Laboratory System research fleet. The technical support awarded here will assist NSF-funded researchers conduct a diverse suite of oceanographic studies from these four vessels throughout the world oceans, beginning in 2000.
***